Charter Party Agreement for Operating the Research Vessel Point Sur

9633812 GREENE The NSF-owned Research Vessel POINT SUR has been operated under a charter party agreement by the San Jose State University Foundation since 1986. This project extends the University's operation of the POINT SUR for five years under an updated, modified charter party agreement. ***